Feasibility Study of the Chunchucmil Regional Economy

With National Science Foundation support, Drs. Bruce Dahlin and Anthony Andrews will conduct exploratory archaeological research at the site of Chunchucmil which is located in the Yucatan region of Mexico. Although preliminary work has been done at this site which consists of a cluster of Mayan ruins, relatively little is known about it or the surrounding hinterland. It is even unclear exactly when it was inhabited and whether occupation was continuous or episodic. Preliminary work by Dahlin based on aerial photographs suggests it supported a large population. In this, the first stage of a longer planned study, Drs. Dahlin and Andrews will conduct a feasibility study. They will carry out a preliminary examination of the site to determine the best way to map it. They will also undertake a preliminary reconnaissance of the surrounding region to determine the types and densities of smaller sites and decide how best to design a regional survey. Some areas, such as the associated lowland coastal swamps are difficult to access and consequently very poorly known. On the basis of the results of this one season of field research, a larger long term project will be designed. The Mayans built cities with massive public architecture in regions which today support very low human populations. Based on the archaeological evidence, prehistoric densities were likely much higher than their modern counterparts and archaeologists wish to understand the subsistence strategies these ancient Mayans employed. Preliminary analysis indicates that the Chunchucmil region lacked the carrying capacity to support the prehistoric population if one relied on local agricultural production alone. Dahlin wishes to reconstruct prehistoric population densities determine the production potential of this environment and finally try to understand the subsistence strategies employed. This project is important for several reasons. It will increase our understanding of prehistoric Mayan civilization. It will also hopefully yield information useful for the present day utilization of environments of this type.